Assessment of and Outlook for NSF's Materials Research Science and Engineering Centers Program

The National Academy of Sciences will assess the Materials Research Science and Engineering Centers (MRSEC) program of NSF's Division of Materials Research. The work will be conducted by a committee of experts assembled by the Division on Engineering and Physical Science's Board on Physics and Astronomy. The assessment will evaluate the program's performance and impact and frame an outlook for its future. Factors to be considered will include the role of the MRSECs in enabling multidisciplinary research, supporting instrumentation development, providing research and education infrastructure, and facilitating collaboration and cooperation between researchers and industry. The committee will complete its work over the course of 18 months.